Internet Telecommunications Support for the United States Antarctic Program

ABSTRACT 9528497 ROUNDS This Memorandum of Agreement (MOA) has been established between the NSF/OPP and NASA Ames Research Center, NASA Science Internet, as a collaboration vehicle intended to capture data and related telecommunications supported previously under a separate MOA with NASA Headquarters, Washington, D.C. The predecessor MOA was established in support of collaboration between NASA and NSF for developing jointly managed projects to explore the analog between space exploration and research and Antarctic science and research. A continual growth in telecommunications and data networking projects has occurred under the original MOA to the degree that both agencies agreed to develop a new framework of interaction tailored specifically for this function. The accompanying Task Completion Summary represents the first funding for specific tasks originated under the old MOA framework: (a) Continuation of INTELSAT satellite telecommunications services, Internet services, and on- demand compressed video services for McMurdo Station $516,000 (b) Provision of electronic news gathering microwave transmission system and fiber optic video/audio transmission cable system in support of the NSF-NASA distance learning project, "Live From Antarctica" $48,000 These products and services have been provided by NASA on a cost reimbursable basis by NSF. The full requested amount of $562,000 is recommended for award to NASA in reimbursement of FY95 funds expended in support of NSF activities of the United States Antarctic Program. ***